Mathematical Sciences: Logarithmic Sobolev Inequalities and Knot Theory

Professors Gross and King will conduct research in the areas of harmonic analysis and geometrical quantum field theory. Professor Gross' research will be in the flourishing field of logarithmic Sobolev inequalities which he will attempt to prove in various untried circumstances including some infinite dimensional situations. Professor King's research will involve quantum field theory and its relation to geometry and topology. In particular he will use ideas of quantum field theory to investigate the theory of knots, links, and braids in Euclidean three space. Logarithmic Sobolev inequalities have been useful in many areas of mathematics ranging from the theory of smooth surfaces and how they vibrate to how fast systems of various kinds reach equilibrium. The theory of knots, an area within the branch of mathematics called topology, was recently shown to be connected to other formalisms in physics and mathematics, in particular the theory of quantum fields.